Research in Multi-Dimensional Signal Processing

Multi-dimensional signal processing involves the processing of signals which depend on more than one independent variable. Signals received by an array of sensors represent a class of problems in which advantage can be gained by multi-dimensional signal processing. The array can be comprised of spatially distributed sensors or it can be synthesized by a single sensor mounted on a moving platform. This research program is directed at three important areas: signal synthesis and reconstruction from partial Fourier domain information, multi-dimensional spectral estimation, and short time processing of multi-dimensional signals. There are a number of important issues that will be explored in each of these areas; in many instances, the research focuses on the study and development of algorithms and a number of potential directions for applications.